Reliability Screening via Outlier Analysis

Testing integrated circuit chips at elevated temperature and voltage,
known as burn-in testing, is used to improve product reliability by
screening out chips that pass all their regular tests, but might fail
during customer use. Burn-in of high performance chips such as
microprocessors requires increasingly expensive power and temperature
control to avoid destroying good chips. Burn-in test is also becoming
less effective in newer technologies. The combination of these
problems means that burn-in test can now cost more than regular chip
testing for high-performance products. Burn-in test is already too
expensive for many products, even though they have high reliability
requirements.

One way to improve chip reliability without burn-in is to throw away
chips which are "different" from the rest of the chips. They are
different in that they work correctly, but some measurements have
abnormal values. These "black sheep" chips are known to statisticians
as "outliers". What makes this problem challenging is that past
experience shows that most of the chips thrown away will work just
fine for the customer. So throwing them away represents lost profits
to the manufacturer. The research goal is to find techniques that more
accurately identify outliers that would fail for the customer.

There are two research challenges. The first is to identify a set of
measurements that are good at detecting outliers. The second is to
determine when a measurement is so abnormal that a chip should be
thrown away. Historically the standby power consumed by a chip has
worked well for detecting outliers. However this is becoming less so
in new technologies. New ideas are to consider other measurements,
such as behavior under abnormally low operating voltages, or how
different a chip is from its neighbors on the semiconductor
wafer. This research will evaluate these and other ideas using chip
data from IBM, LSI Logic and Texas Instruments to identify approaches
that work well in practice. The primary merit of the research is that
it will develop techniques to reduce chip manufacturing costs and
improve the reliability of chips shipped to customers.